GSE/DIS: SciGirls Museum Adventures from DragonflyTV

SciGirls is a national dissemination project, which puts resources from the PBS science series DragonflyTV into the hands of outreach professionals at PBS stations and educators in after school programs for girls. The current project leverages PBS' nationwide network of member stations to connect the educational research community with practitioners in the field. Thus far SciGirls has trained over 100 educators and community leaders and reached 2,300 girls in grades 3 through 8.

SCIGIRLS MUSEUM ADVENTURES has four objectives: 1) to provide museum educators with DragonflyTV videos that model authentic inquiry in museum settings; 2) to expand SciGirls activity guides with new museum-based activities and research-based strategies specifically for museum educators; 3) to create a set of online, streaming videos that demonstrate best practices in gender-inclusive teaching; and 4) to facilitate feedback between our participants and the research community and deepen our understanding of the most effective ways to engage girls in STEM activities.

Intellectual Merit--The strength of SciGirls lies in its comprehensive multimedia approach and its foundation in the inquiry-based strategies defined in the National Science Education Standards. The videos provided in SciGirls emphasize the process of science, rather than a collection of science facts. They provide real-world models of inquiry that all girls can do. Taken together, the SciGirls resources stimulate discussion, build confidence and pave the way for girls to investigate science questions on their own. The educational strategies provided by SciGirls are based in research into gender- inclusive STEM teaching and learning, translated into strategies that can be easily used by after school educators to create successful STEM experiences for girls.

Broader Impact--SCIGIRLS MUSEUM ADVENTURES will provide museum educators at ten sites with materials that can be used in their programs for years to come. The entire set of resources--streaming videos and Activity Guides--will be available on DragonflyTV's Web site at www.pbs.org. The outcomes of the project will be shared with the informal science education research community. Findings will be reported at the annual PBS National Center for Outreach Conference.